Interactive Computer Laboratory for Physical Science

9452317 Ross An interactive computer laboratory will be established for use both by non science majors studying physical science and by physics majors. As the centerpiece of this project, non science majors will use the computers for hands-on manipulation and interpretation of images obtained from weather satellites. Thus, students taking Introduction to Meteorology, Introduction to Geology and Introduction to Astronomy will gain meaningful scientific experience through the analysis of data presented graphically rather than numerically. The laboratory will allow nonscience majors to work directly with remote sensing data. High-resolution images from both geostationary and polar orbiting environmental satellites will be received and stored. These will include images showing visible features, temperature features and water vapor content. The images will be retrievable for study either individually or in "animation loops" which show the changes occurring over a 24-hour period. The laboratory will also be a powerful tool for physics majors, who will use the computers for interactive modeling of physical systems and graphical analysis of data obtained in physics laboratories.